Research in Large-Scale Integer Programming

9700285 Nemhauser This research involves the development of solution methods for mixed-integer programming problems. The objective of a mixed-integer programming problem is to maximize a function subject to linear inequality (or equality) constraints and integrality restrictions on some or all of the variables. The goals of the research are to develop new methodology, algorithms, and prototype software for solving this class of programming problems. The research addresses two specific problem domains, stochastic integer programming and set partitioning, which have heretofore not received much attention. The researchers will investigate linear programming-based approximation methods, parallel integer programming, and decomposition techniques as methodologies for obtaining robust solutions to these difficult combinatorial problems. The research results are to be implemented in openly distributed software systems, and will thus be accessible throughout the research community. Mixed-integer programs have broad application in solving problems that arise in logistics and distribution, production planning, aircraft (flight and crew) scheduling, and resource allocation. It is likely that tremendous progress in the size of problems that can be solved and in the time it takes to solve them will come from parallel computing, and thus this research has high potential to improve decision-making in such large-scale systems.